Conference Support for GSA Penrose Conference on Fault- Related Folding

This action provides partial support for a Penrose conference entitled Conference on Fault related folding to be held in Banff, Alberta August 27-27, 1995. This subject is of considerably current interest and the conference is expected to help exchange ideas and data as well as help set research priorities in this area.